Acquisition of Laser Scanning Confocal Microscope

A laser scanning confocal microscope will be acquired to allow structural analysis of: 1) The development of and cellular communication in the central nervous system and 2) chromosome movement and partitioning within cell nuclei. Specific projects include analysis of synaptic transmission, analysis of 3-D neuronal structure, cellular and molecular responses glia to immunoegulatory molecules and molecules that regulate regeneration, and analysis of the interaction of the centromere/Kinetochore with microtubules in mitotic cells.